Mossbauer Studies of Advanced Superconducting Materials

Professor Kimball will investigate the lattice dynamics of superconducting systems containing small concentrations of iron using Mossbauer spectroscopy. The influence of the 3d transition elements on superconducting and magnetic properties will be determined. Vibrational states in the high temperature oxide superconductors will be probed with substitutions of rare earth ions for yttrium and of tin or ion for copper. At a critical iron concentration the lattice transforms from orthorhombic to tetragonal. Mossbauer and neutron diffraction will be used to delineate the oxygen anion order-disorder transformation between phases of these compounds and to observe the magnetic behavior in the disordered phase. Neutron diffraction measurements in the BaPb1-xBicO3 superconductors will continue as will a search for other high temperature superconducting materials of the oxides and sulphides.